Conference and school in Poisson geometry

Abstract

Award: DMS-0556398
Principal Investigator: Alan D. Weinstein

We propose to support travel to Japan for US participants
(primarily graduate students and postdocs) at the conference
Poisson 2006, to be held in Tokyo June 5-9, preceded by a
preparatory "school" of three days in length. The aim of the
meeting, whose full title is "Poisson Geometry in Mathematics and
Physics," is to bring together mathematicians and mathematical
physicists with common interests in Poisson geometry and its
applications. With roots in classical mechanics about 200 years
ago and work of Sophus Lie about a century ago, the subject of
Poisson geometry crystallized through work of Lichnerowicz and
Kirillov in the 1970's. Its influence now extends to a wide
variety of areas, including symplectic geometry and topology,
deformation theory, representation theory, algebraic geometry,
integrable hamiltonian systems, and field theory.

Speakers at the school and conference have been chosen not only
for the importance of their results but also for their ability to
communicate them to a broad audience of mathematicians and
physicists. Proceedings will be published in a manner which
makes them accessible at low (or no) cost to a wide readership,
in order to stimulate further study and research in the rapidly
growing area of Poisson geometry.

Detailed information about the activities may be found at the
website: http://www.u-bourgogne.fr/monge/g.dito/poisson2006/.